International Symposium-Workshop on Particulate and Multiphase Processes, Miami Beach, Florida, April 22-26, 1985

Support will be provided for an international symposium-workshop onParticulate and Multiphase Processes to be held in Miami Beach, Florida, on April 22-26, 1985. The participants for the symposium- workshop will come from universities, research establishments, and industrial organizations, both from the United States and from overseas. The symposium- workshop will be organized to include papers and progress reports on current particulate and multiphase processes research and development, as well as roundtable discussions and workshop discussions; the proceedings and the workshop reports will bepublished. Further, the symposium-workshop will provide a comprehensivestate-of-the-art assessment of the progress of particulate and multiphase processes research, development, and applications in the chemical industry, in the utilities industry, and in other industries. As a result of the workshops, a rational basis for identification of areas of particulate and multiphase processes for further research, development, and applications will be established.